Organization of 1989 Optical Computing Topical Meeting

The main objective of the meeting is to report on the current state of the art in optical computing and to look into possible future directions that are likely to emerge from an interaction between new devices, novel architectures, and nontraditional applications for optical computing.